Microcomputer-Based Laboratories in a Linked Physics- Calculus Program

9452617 Karmon This project addresses community college students who are planning to major in Engineering and Physics. Traditionally, many students lack intuition for the underlying physical concepts, and as a result the physics and calculus courses present a major hurdle for beginning students, especially women and minorities. This project will improve the learning, retention, and application of physics concepts and principles by physics and calculus students at Diablo Valley College. This will be accomplished by the microcomputer-based laboratories developed by Thorton and Laws and a video projection system. This project will create mobile units of computers that will serve different areas and functions in teaching physics and calculus and will augment the "Interdisciplinary, team-teaching Calculus and Physics Project" at Diablo Valley Co lege. This project will improve calculus and physics instruction, increase science literacy, and stimulate other colleges to adapt this approach.